Support for AmeriDendro Conference; Tucson, AZ; May 13-17, 2013

involved in fields including archaeology, hydrology, climatology, ecology, and global change science. This workshop-- AmeriDendro 2013, to be held in Tucson, Arizona, in May 2013-- focuses on dendrochronology in both North and South America, and will cover more than a dozen topics ranging from tree-ring formation, fire ecology, and dendroclimatology to dendrogeomorphology, New- and Old-World archaeology, and tree-ring networks. The meeting will be hosted by the Laboratory of Tree-Ring Research at the University of Arizona. Over 200 scientists from North and South America, Europe, Asia and Africa will present results of their research.

Funding supports student participation in the workshop. Students will gain valuable academic and professional experience, including networking with international colleagues.